Enhancement of Minority Student Participation in the Human-Enterprise Systems Engineering Program

Engineering (59)

This program enhances educational opportunities to minority students in the field of Human-Enterprise Systems (HES), an interdisciplinary field that is emerging as an important domain for designing systems meant to operate effectively in the global economy. This field is experiencing a severe engineer shortage and is especially lacking minority engineers. HES builds on strengths in the Departments of Industrial & Systems Engineering (ISE), Computer Science, and Electrical & Computer Engineering. Twenty-two academically talented and financially needy students from the three departments are nurtured to become outstanding engineers in this field. Each student participates in the activities of the project in order to make solid academic progress and to build soft skills as future professionals. This project produces well-qualified engineers in HES from a minority serving institution while simultaneously improving educational environments and promoting this field. Findings from this project regarding effective minority mentorship and tutorial programs will be presented at educational conferences.